RIMI: Conformational Studies Using Dynamic NMR Spectroscopy and Computational Methods

9450455 The proposed research would consist of two parts. The first part consists of NMR studies of cyclopropyl conjugation, for comparing the electron donating abilities of the three membered ring, double bond and phenyl group. The second part consists of a study of conformation and bonding in ureas, thioureas and related compounds using NMR spectroscopy and molecular orbits calculations. These projects will make extensive use of NMR spectroscopy and computational methods and will provide minority students with experience in using both methods of assigning conformation and structure.